Philadelphia ISEOST Symposium -- A Planning Grant

The University of Pennsylvania's Out of School Time Resource Center is requesting a planning grant to conduct a symposium that will be used to develop a unique professional development model for informal science educators and out-of-school time providers. Project collaborators include the Philadelphia Zoo, Education Works and Branch Associates. The Symposium will include speakers, workshops and discussion groups designed to introduce the professional development model and obtain feedback and support from area educators. It is anticipated that by engaging representatives from both fields, the project will result in more focused, outcomes-based programs for diverse student audiences.